Models of Conduction through Ion Channels

9404430 Schumaker This proposal describes four major projects. (1) Stochastic dynamical models will be developed for the multi-ion permeation of Cs+ through Gramicidin A. A starting point for this study will be the single-ion permeation models of Jakobsson and Chiu. Appropriate physical interactions between each ion and the pore, and between multiple ions in the channel, will be included. Results will be compared with experimental data available for Cs+ permeation through Gramicidin. (2) Preliminary analytical results on an "orientation independence" symmetry of the shaking stack reversal potential will be generalized to include general single-vacancy models. The symmetry will also be tested numerically, and its sensitivity to surface charge effects will be studied. The proof of the symmetry will also be extended from a discrete state (Markov chain) formalism to a new diffusive formalism. Recent K+ channel mutagenesis experiments can be interpreted in terms of structural models compatible with the shaking stack mechanism. Therefore, results on the orientation independence symmetry will be compared with experimental data available for K+ channel reversal potentials. (3) Preliminary work, using a discrete state formalism, shows that a class of symmetrical shaking stack conduction mechanisms predict a specific relationship between conductance measurements (in the presence of only a single permeant ion) and bi-ionic reversal potential measurements. This relationship could provide an important experimental test of the shaking stack or related mechanisms. The result will be generalized to a broader class of conduction mechanisms, and a sensitivity analysis performed to see how it persists in the absence of certain simplifying assumptions. (4) The nonlinear Boltzmann equation is used in combination with Stern condensation to model the distribution of ions in an electrolyte in the presence of fixed charges. Variational methods will be used to minimize free energy and ob tain formulas for the Stern association constant in both planar and spherical geometries. %%% Ion channels are proteins found on the surface of cell membranes which allow certain kinds of ions to pass through those membranes. These channels are important both fundamentally, because of their vital role in the electrical properties of membranes, and also practically, since they are the targets of a large class of pharmaceuticals. This study is especially concerned with ion channels that appear to hold two or more ions within their conducting pore at one time; these are known as multi-ion channels. Several biologically important potassium channels are believed to be examples. The proposal includes four major projects. (1) Computer simulations of the permeation of Cs+ through the antibiotic ion channel Gramicidin A. Although Cs+ is not an important biological ion, the Gramicidin pore can apparently hold two Cs+ ions at once. This is probably the simplest experimental model of a multi-ion channel. (2) A mathematical and computer study of a qualitative property ("orientation independence") which characterizes the conductance of a class of mechanisms ("shaking stack" models) that have been proposed to explain conduction through potassium channels. Orientation independence can be tested experimentally. (3) A mathematical and computer study of a second relationship that certain symmetrical shaking stack models predict will hold between certain kinds of conductance measurements. This second relationship is particularly distinctive. Finding it experimentally would provide strong evidence for the shaking stack or related conduction mechanisms. (4) A theoretical study of the direct condensation of ions on charged chemical groups which appear on the surface of ion channel or biological membranes. This condensation process is known to alter the conduction properties of ion channels. ***